Regulation of Gene Expression by Satellite P4

The replicon P4 propagates as a helper-dependent lytic virus, as a prophage end as a stable plasmid of E. coli. P4 may act as a 'regulatory element' effecting in trans an integrated or coinfecting helper virus, altering its expression in several different ways that support the lytic cycle of P4. The gross phenotype of this interaction is the encapsidation of P4 DNA within viral capsids the subunits of which are specified by morphogenic operons of the helper virus. The broad objectives of this proposal are to investigate interactions between phasmid P4 and helper virus P2. The purpose of this award is to supply limited support of this project for a six month period.//